CSR-SMA: Language Support for Data-Centric Systems Monitoring

Complex distributed systems must be monitored to find problems,
record/archive system health, oversee system operation, detect
malicious activity, and perform a myriad of other tasks. To improve
the reliability, security, performance, ease-of-construction and
maintaince of system monitors, this research develops a high-level,
domain-specific language to specify the data that monitoring systems
accumulate, archive and present to users. Using high-level
specifications of distributed data sources, our compiler generates
reliable, secure, and high-performance monitoring tools that
concurrently fetch distributed data, archive (self-describing) data
for later analysis, query data to troubleshoot problems, and display
statistical data summaries to monitor real-time system health.

To make a broad impact, the PIs will develop tools for monitoring
distributed systems, including clusters and wide-area platforms such
as PlanetLab, a global network research testbed with 400-450 nodes and
200-250 network experiments running at any given time. We will make
the technology open-source, enabling others to use the monitoring
system for their own projects. Additionally, we will also work with
industrial partners to transfer our monitoring technology to industry.

Finally, the language and compiler system being built will make a
broad impact outside the networking community as the kind of ad hoc
data found in monitoring systems also appears across the natural and
social sciences, including biology, chemistry, physics and economics.
Hence it will be possible to use the specification language to
describe the formats of scientific data sets and to generate querying
and visualization tools that help improve the productivity of a wide
range of computational scientists.